Partial Support: International Conference on Composite Construction

Research and development related to composite steel-and-concrete economy and efficiency of structures, to implement new construction techniques, to incorporate new and improved materials, and to devise methods to rehabilitate and strengthen existing structures all contribute to advancing the state-of-the-art in this field. Researchers and practitioners in the field of composite construction need to meet periodically to exchange information related to these topics. Such exchanges would avoid duplication of research efforts, provide transfer of technology and spur new developments. An international conference on composite construction is proposed to satisfy these objectives. The conference will cover all phases of design, construction and research related to steel-and-concrete composite members. Both new construction and rehabilitation and strengthening of existing structures will be discussed. Researchers and practitioners from around the world will be invited to participate, with total attendance limited to approximately 100. The primary objectives of the conference are as follows: 1. To exchange information in the field of composite construction; 2. To provide technology transfer between researchers and practitioners; 3. To promote the use of research in the development of design procedures; and 4. To identify research needs related to composite construction. The conference will be held June 7-l2, 1987, in Henniker, NH at a site normally used for Engineering Foundation Conferences. The partial support budget requested is appropriate. The Principal Investigators are capable and the institutional resources are appropriate. An award is recommended.